Equipment Request for the UCSD Structural Systems Laboratory

This research will provide equipment for outfitting the new University of California-San Diego (UCSD) Structural Systems Laboratory. This facility will provide unique capabilities in that it is designed for full-scale experimental testing of buildings up to five stories by using a massive 50 foot high reaction strong wall. The equipment will include hydraulic actuators, control systems, data collection systems, and support systems. This laboratory will have four main functions. First, it will serve as the focal point for the Structural Engineering Program at UCSD. Second, it will serve as a regional laboratory and complement other structural and earthquake engineering laboratories. Third, it will support international research programs such as the US-Japan Coordinated Earthquake Program in Masonry Research. Fourth, it will encourage interaction between academic researchers, practicing engineers, and the construction industry.